Dissertation Research: Floral Ontogenetic Studies in Mimosoid Legumes

Graduate student Ramirez-Domenech proposes a study of the floral development of the mimosoids, a subfamily of tropical legumes. Scanning electron microscope studies will reveal the organ of initiation and pattern of growth of floral parts, which can then be used to help define and distinguish species and genera. Trends in the patterns of floral development may also prove useful in reconstructing ancestor-descendant relationships. The proposed research constitutes a completely new line of inquiry into the systematics and evolution of the Mimosoideae. The project may encourage other botanists to explore developmental morphology for new information concerning classification and evolution.